Doctoral Dissertation Research in Political Science: Polling Predispositions: The Structure and Strength of Political Orientations in the Czech Republic and Slovakia

Doctoral Dissertation Research in Political Science: Polling Predispositions: The
Structure and Strength of Political Orientations in the Czech Republic and Slovakia

How can we account for the strikingly different political preferences of Czechs and
Slovaks in the post-communist era, despite a shared half-century of political history and
similar political institutions? What can explain the divergent levels of popular support
for government initiatives, such as EU membership, and the electoral success of different
types of parties in each country? Partisanship has long been considered the strongest
predictor of citizens' political preferences. However, partisanship appears to be on the wane in advanced democracies. In the new democracies of Europe in particular, where partisanship is unevenly, if at all, crystallized at the popular level, it matters even less .Building upon extant research, the Ph.D. student looks to citizens' predispositions as the 'primary ingredients' of political judgment-making. The student has three main objectives for this project. The first is to identify those predispositions to which citizens in new European democracies refer, specifically utilitarian self-interest vs. group affect, when making political decisions. The second is to demonstrate the linkages between such predispositions and political judgments -- in effect, to map citizens' belief systems. The third objective is to test these linkages for their strength: how resilient are these predispositional-attitudinal linkages in the face of persuasive messages
The quest for the mechanism underlying preference formation is a daunting one. To
minimize potential survey bias, the student employs an in-depth cognitive questionnaire with a small sample of citizens. After letting respondents explain how they make political decisions in their own words -- in effect, the revealed organization of their belief systems - the student implements a large-scale survey experiment to test the organization and strength of their belief systems. The purpose of this dual methodology is to establish reliability of the measures and expected relationships between predispositions and political judgments via different avenues. In order to avoid the ecological fallacy, this design is employed to examine the mechanism underlying preference formation at both the individual and aggregate levels.

Broader Impact: These cases are invaluable because they allow us to hold constant often-cited explanatory variables, such as political institutions, transition to democracy, and post-World War I political history. Yet there are many differences between the two countries, such as pre-World War I historical experience, sociodemographic characteristics such as religion and class, and the presence of ethnic minorities, which may prove relevant to differences in political judgment-making and ultimately, political outcomes. Thus they provide a unique comparative set within which to explore the relationship between political
predispositions and political decision-making in a virtual laboratory.